Equipment for Isolating Plasmid DNA and Cytochrome p450 in Undergraduate Laboratories

This department is introducing into undergraduate physiology, biotechnology and molecular biology laboratories a set of new experiments that involve the isolation of the microsome component of cell lysates and closed-circular, non-chromosomal DNA from bacteria. The new ultracentrifuge procured through this project is used to isolate the microsome fraction from cells of marine animals that have been exposed to xenobiotics (artificially exposed in the laboratory or exposed via polluted waters). Students study the effect of xenobiotics on the quantity and functions of the mixed function oxidase system, a cytochrome p450. In other experiments, students use ultracentrifugation to isolate and characterize either large endogenous plasmids from Thiobacillus versutus or closed-circular DNA vectors carrying a variety of inserts. (Such isolations nornally involve overnight centrifugation in cesium chloride/ethidium bromide, with or without prior high salt/SDS treatment.) An additional longer-term goal is for students in under- graduate research projects to isolate from sucrose gradients E. coli minicells containing the T. versutus plasmid. In all cases the expertise and support materials had been available to do these projects, but a reliable ultracentrifuge was not. The new equipment, therefore, is facilitating useful and important curricular changes. The grantee institution is matching the NSF award with an equal sum obtained from non-Federal sources.